Mathematical Sciences Research Equipment

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences. It is for the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required by several research projects, and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers, and with substantial cost-sharing from the institution submitting the proposal. This is an instance of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment in this project will be used by the Department of Mathematical Sciences at Northern Illinois University to support research in four projects: A Study of Free Objects in Varieties of Semigroups; A Variety of Problems in Computational and Combinatorial Number Theory; The Implementation and Analysis of Superfast Toeplitz Solvers; and Empirical Investigations of Weighted Least Squares Statistics for testing Log-linear Hypotheses in Categorical Data.